Molecular Genetic Analysis of Host Specificity in Plant Viruses

Most plant viruses replicate in directly inoculated cells from a wide range of plants, but show exquisite host specificity with respect to initiating cell-to-cell and/or sustaining subsequent systemic spread through the plant. As a foundation for molecular study of the individual and collective role of plant virus genes in movement, systemic infection, and host specificity, the investigators have produced and characterized complete, infectious cDNA clones of several distinct bromoviruses of varying divergence in host range and genome sequence, and demonstrated that designed exchange of selected genes and gene segments between such viruses provides a powerful approach for identifying host specificity determinants and characterizing their behavior. Building on these tools and the strong general characterization of bromovirus molecular biology, they will now: follow infection movement at the cellular level to define the distinct stages at which systemic infection is blocked upon alteration of different virus genes; map host specificity effects to specific functional domains of several implicated virus genes and test a potentially powerful new approach to RNA virus genetic mapping based on natural RNA recombination; test preliminary indications that, contrary to the "gating " hypothesis, successful systemic infection requires mutual adaptation between the 3a movement gene and the 1a and 2a replication genes; determine whether the apparently post-replication influence of the 1a and 2a genes on systemic infection is truly independent of their known functions in RNA replication; and localize observed host specificity determinants in noncoding sequences surrounding the 3a gene and determine their possible influence on 3a gene expression. The results should provide clarifying concepts regarding the plant's response to the infective viruses.